Upgrading of the Undergraduate Chemistry Laboratories with a200 MHz Pulsed FT NMR Spectrometer

Acquisition of a 200 MHz (protons) NMR spectrometer operating in the pulsed FT mode, with variable temperature and two- dimensional (2-D) spectroscopy capability will improve the educational experience in the undergraduate chemistry teaching laboratories. The new instrument will be used by undergraduate students in three of the four core laboratory courses in the chemistry program of CMU. The new spectrometer will provide undergraduate students the opportunity to carry out modern NMR spectroscopy to elucidate the molecular structure of organic and inorganic compounds, to do studies of chemical kinetics including rapid exchange reactions, and will permit variable temperature 1H, 13C, and 29Si NMR spectroscopy. The undergraduates will become familiar with more sophisticated FT techniques and modern NMR data processing by computer. An off- line PC will be interfaced with the spectrometer to increase the throughput of the system and to enhance the familiarization of students with the application of a PC in the laboratory. A hands-on approach will be pursued throughout the three undergraduate courses. During summer the spectrometer will be used by students participating in the Pennsylvania Governor's School for the Sciences. A strong dissemination plan will be developed using publication in the appropriate journals, and by distribution of packets with comprehensive descriptions of selected experiments, containing sections on feedback from students and on pedagogical results.